NSF Chemistry Workshop on Sustainability

Vicki Grassian, University of Iowa, and Gerald Meyer, Johns Hopkins University, will cochair the NSF Chemistry Workshop on Sustainability. This workshop will engage a diverse group of established investigators in chemistry and related fields who work on various aspects of sustainability. Three critical areas for progress are new energy sources and energy stores, chemical manufacturing with reduced environmental impact, and chemical transformations of the environment. The science drivers that frame sustainability from the perspective of chemists and molecular scientists will be articulated and developed at this workshop. The workshop discussions will be widely disseminated to the chemistry community through reports and symposia.